Presidental Awards for Excellence in Science, Mathematics & Engineering Mentoring (PAESMEM)

Academic Excellence (ACE) Honors Program
University of California, Santa Cruz
Nancy J. Cox-Konopelski

ACE focuses on retaining students in entry-level undergraduate science courses through a combination of collaborative problem-solving sessions and one-on-one peer mentoring. ACE provides a setting in which students master the appropriate course material while developing critical thinking and problem-solving skills. In 1998, ACE served approximately 500 students, most of whom belong to underrepresented minority groups, providing co-curricular discussion sessions in the fields of calculus, chemistry, physics, biology and genetics. Sixty-two percent of ACE participants graduated and seventy-five percent earned a degree in science, mathematics or engineering.